CAREER: StreamZ: An Adaptive and Scalable Lossy Compression Framework for Extreme-Scale Scientific Data Streaming Pipelines

The overarching goal of this CAREER project is to design and develop a highly efficient and scalable lossy compression framework for extreme-scale scientific data streaming pipelines, addressing the growing data challenges in advanced cyberinfrastructure (CI). Scientific applications increasingly push the boundaries of I/O throughput and storage capacity, creating an urgent demand for effective data reduction. Although numerous scientific lossy compressors have been proposed, most treat input as static and overlook the inherently streaming nature of the scientific pipelines where data are generated continuously from experiments or simulations to storage, and consequently moved from storage to analysis workflows continuously. This project aims to fundamentally improve the way extreme-scale scientific data is managed by developing StreamZ, an adaptive and scalable streaming-first lossy compression framework for scientific workflows. The core objective is to enable efficient in-situ data reduction, and rapid intelligent data retrieval. By seamlessly compressing data as it is produced and by allowing scientists to decompress what they need in priority and progressively, StreamZ will bridge the growing gap between data generation rates and storage, I/O capabilities in advanced computing environments. Driven by real-world requirements of domain scientists in climatology, X-ray imaging, cosmology, molecular dynamics, internet of things (IoT), and LiDAR, StreamZ is expected to dramatically reduce data storage and transfer burdens, speed up data access, and ultimately accelerate scientific discovery.